Conference: 63rd International Conference on Electron, Ion, and Photon Beam Technologies and Nanofabrication (EIPBN); Minneapolis, Minnesota; May 28-31, 2019

This award is for the partial support of the International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication (EIPBN) to be held May 28-31, 2019, in Minneapolis, Minnesota. The conference includes presentations, exchange of ideas, and extended discussions and interactions among international participants, academics, industry leaders and government stakeholders in the areas of nanofabrication and nanomanufacturing. This forum is instrumental in the generation and incubation of breakthrough and transformative ideas in many scientific areas in nanotechnology and advanced manufacturing. This award supports the participation of graduate students, postdoctoral fellows, and early career faculty members. Women and under-represented minority students are targeted to attend and participate in the conference activities. The requested NSF funds provide support for the attendance of about 36 students. This international conference is a key mechanism for linking basic science with engineering towards the development of useful nano-enabled products, which benefit the US economy and society.

EIPBN is a major international conference, which provides a single forum for discussion of the latest developments in the synthesis, fabrication, manufacturing, imaging, measurement and characterization of small-scale or nano-scale structures, multi-layered devices and integrated multi-scale systems. Regular meetings of the key researchers, developers and users in the advanced nano manufacturing field are necessary for the exchange of ideas, information, and knowledge to enable and accelerate advances and breakthroughs in nanofabrication and nanomanufacturing. This conference offers a platform for the open exchange of new and previously unpublished scientific research and ideas. It fosters education and workforce development through presentations, lectures, short courses, and other student-oriented activities.